Ensuring the Sustainability of Critical Materials and Alternatives: Addressing the Fundamental Challenges in Separation Science and Engineering

With support from the Chemical Measurement and Imaging Program in the Division of Chemistry and the Chemical and Biological Separations Program in the Engineering Division of Chemical, Bioengineering, Environmental, and Transport Systems (CBET), Ms Kristin Chin, Dr. Catherine T. Hunt (Dow Chemical Company) and Prof. Mamadou S. Diallo (Caltech and KAIST) will be co-organizing a 1-day symposium at the fall ACS annual meeting in 2012. The symposium is titled "Ensuring the Sustainability of Critical Materials and Alternatives: Addressing the Fundamental Challenges in Separation Science and Engineering". The aims of the symposium are to: 1. Discuss the issues related to stresses in the global market and the key and enabling role of SSE in ensuring a sustainable supply and utilization of critical materials; 2. Bring into focus crosscutting research needs and Scientific Grand Challenges in SSE associated with the sustainable extraction, recovery, recycling and purification of critical materials; and 3. Communicate these research needs to the SSE and broader science/engineering community. In addition to the organized talks and panel discussion during the symposium, the symposium content will be summarized in a comprehensive report and a dedicated new website will be set up for permanent dissemination of symposium materials.